Research of Anyons, Fractional Quantum Hall Effect and Localization

Research on Anyons, Fractional Quantum Hall Effect (FQHE), and Localization - The research under this grant will explore the more fundamental aspects of strong correlation, exotic statistics, and the localization-delocalization transition, primarily in physical situations where time-reversal-invarience symmetry is broken, typically by a large external magnetic field. The proposed problems include FQHE studies in unusual systems, tunneling of anyons, quantum localization in pseudorandom potentials, edge effects in FQHE, Wigner crystallization, and two-dimensional Wigner crystallization in strong magnetic fields. Much of this work is inspired by ongoing experimental work in various laboratories, and an emphasis on making close connection with present and future experimental programs will be a priority.